VISTA: Visual Spatial Thinking Activities

Project VISTA (VIsual/Spatial Thinking Activities) is a curriculum development/research project designed to produce a bank of enrichment/enhancement science-oriented VST learning activities for grades K-8. University science educators, scientists, cognitive psychologists and educational technologists will collaborate with 36 exemplary Teacher Associates to develop and refine Project VISTA activities over a phased three-year period. The project will produce the following outcomes: 1) a baseline of assessed VST abilities for children in grades K- 8; 2) a battery of new VST assessment instruments; 3) a large collection of innovative VST science learning activities, including hands-on experiences, interactive videotape-based experiences, computer-based experiences, and inquiring demonstrations. These enrichment materials will be made available nationally to build upon and supplement all existing K-8 science programs.